NeTS-NOSS: Towards Dynamically Reconfigurable Multimodal Sensing Systems

This project focuses on the investigation, development, and integration of multi-modal and mobilitybased
sensor networking technologies. In particular, future sensor networking technologies will include
(i) multi-modal sensing that mixes complex data types such as audio, images or video and (ii) mobilitybased
sensing, where parts of the sensor network may be dynamic. The objectives of this proposal
include the study of the following topics:
Logical Association and Organization Framework: It has been observed that network connectivity via ad
hoc routing algorithms does not reflect the physical placement of sensors within the environment. The
inclusion of multi-modal sensing and mobility into sensor networking systems requires logical
organization ability. This project will focus on develping a multi-layer organization and routing
mechanism that supports logical associations, allowing for efficient organization of sensor networks in
application meaningful ways.
Mobility-based Localization, Organization, and Calibration: Besides actuation capability, mobility opens
up new ways of effectively coordinating and organizing the sensor network. This subtask explores the
design and implementation of algorithms that exploit user, coordinated and autonomous mobility for
robust, mobility-assisted calibration, logical association, and localization.
This project will be performed in the context of a flexible and extensible sensor networking framework
called Cascades. Cascades is a Python-based framework combining highly optimized applicationspecific
code segments, such as video processing or video compression, into a script-based architecture
that is readily deployable into a sensor network.